CSR: Small: PowerMeter: Tracking Energy Usage in the Clouds

Workload consolidation on virtualized datacenters is one common
technique used to manage the power usage and energy efficiency of
cloud platforms. However, current solutions limit the available
insight into exactly how energy is consumed by the various cloud
tenants.

In order to address this gap, this research develops PowerMeter — a
set of mechanisms and tools that make it possible to track energy
usage in virtualized cloud infrastructures, on granularity of
individual VMs, or sets of VMs corresponding to a specific cloud
tenant, e.g., a customer or an application. PowerMeter is developed
for a 3000-core fully instrumented datacenter prototype and a 1000-
core system based on newest-generation technology, and is evaluated
using representative workload mixes based on popular cloud
applications and publicly available cloud traces. PowerMeter will
provide currently missing capabilities for dynamically assessing in-
datacenter/in-cloud energy usage, necessary to enable energy usage
transparency and accountability to cloud customers, to understand the
opportunities for improved energy efficiency in virtualized cloud
systems, and for further development of management methods for energy-
efficient datacenters.